U.S.-China Millennium Symposium on Earthquake Hazard Mitigation

This award is for Travel to participate in the 20th anniversary Symposium on Earthquake Hazard Mitigation in accordance with Annex III US-PRC Protocol of Cooperative Studies in Earthquake Engineering and Hazards Mitigation